Kalamazoo Community Based Partnership Project - People to People

The Kalamazoo Area Mathematics and Science Center, established in 1985 with a $2,000,000 gift from the Upjohn Company, provides facilities for advanced mathematics and science activities and courses for high school teachers and students from nine public and three non-public school districts. This project will develop and implement expanded programs for utilizing technical professionals from area industries, hospitals, and other non-educational organizations as well as from neighboring higher education institutions to expand the programs of the Center, both internally and through outreach to area schools. These outside professional will be utilized in two capacities. As resources persons, they will work with teachers in enriching class curricula through consulting, classroom presentations, and assisting in the development of teaching materials. As mentors, they will help individual students devise and conduct research projects. Replicable procedures for recruiting, training, and utilizing such resource persons and mentors will be developed and disseminated widely for use in other communities. Cost sharing by the partners will total 100% of the NSF funding.